COLLABORATIVE RESEARCH: An Experimental Study of Broadcasting Protocols for Video-on-Demand

Proposal Number CCR-9988363
An Experimental Study of Broadcasting Protocols for Video-on-Demand
PI: D.E. Long

One of the most promising approaches to making video-on-demand services
more competitive is to continuously broadcast the most frequently requested
videos. This research addresses three important limitations common to most
existing broadcasting protocols for video-on-demand.

A first research direction is the development of broadcasting protocols
that can handle compressed videos having variable bandwidth requirements.
The performance of these new protocols will be evaluated using a
representative set of videos in the MPEG-2 format used by DVD.

A second research direction is the efficient implementation of interactive
functions analogous to those existing on a VCR. These functions will allow
customers to pause, move backward and forward as if they were watching a
videocassette.

A third research direction is the design of broadcasting protocols that can
adjust their broadcasting schedules to all observed changes in the request
arrival rate. As a result, these dynamic broadcasting protocols will
perform equally well at peak hours and at hours of lower demand.

All these broadcasting protocols will be demonstrated on a very simple
testbed consisting of a single workstation broadcasting a few specific videos.

This is a collaborative research project between the University of
California, Santa Cruz and the University of
Houston.